Planning Grant: Northeastern Oklahoma Teacher Education (NOTE)

Pre-service teacher preparation activities are developed by a team of faculty members at the University of Tulsa and Tulsa Junior College. These activities focus on three principal areas: preparation of parateachers; implementation and planning for summer academies designed to recruit and improve the preparation of future teachers; and an evaluation of the science and mathematics curriculum needs for teacher preparation in the State of Oklahoma. A curriculum for elementary level parateachers is developed, implemented, and evaluated, and a formulation of a curriculum for secondary school parateachers is completed. A high school summer academy is implemented and detailed planning activities for elementary and middle school summer academies is conducted. The evaluation of mathematics and science curriculum needs is done to identify common goals and foster closer cooperation among institutions providing pre-service teacher preparation in Oklahoma.